NYI: Modeling Complex Environmental Systems Subject to Random Forcing Fluxes

This is an award to provide support for research on simulation and modeling to visualize the behavior of complex environmental processes as components of systems that are subject to random fluctuation. He plans to combine considerations of environmental processes as variable in nature with classical approaches to environmental hydrology to model the transport of contaminants in the environment. This award is in accord with conditions contained in NSF 91-112, Young Investigator Awards FY 1992 Program Guidelines for Submission of Nominations. Factors that control the transport and fate of pollutants in aqueous systems are of interest because of the role they play in controlling the movement and fate of the pollutants through aquifers, in treatment process and natural systems. Results of this research may be applied to engineering design of approaches to environmental pollution problems resulting from urban storm runoff, combined sewer overflows and agricultural nonpoint sources of surface and groundwater pollutants.